Role of Bone Morphogenetic Protein Genes in Patterning the Developing Inner Ear

The inner ear of vertebrates is a complex labyrinth of fluid-filled canals, pouches and ducts encased in bone. These organs contain sensory hair cells and supporting cells, and aid in balance and movement control, with some parts specialized for hearing, as in the cochlea of mammals. This complex three-dimensional structure arises during embryonic development from a thickened flat patch called a placode on the side of the head. It is unclear what genes are involved in the developmental program for these precisely 'engineered' tubes and pouches from this originally simple patch of skin. Preliminary results suggest that there are important interactions between two proteins, one called 'bone-morphogenetic protein #4' (BMP4) and the other called 'noggin' that may act as an antagonistic pair of regulators for patterning. This project utilizes anatomical, genetic and molecular biology along with novel microsurgical techniques to implant tiny beads containing the protein-expressing cells directly in the developing ear. Results will clarify how genetic expression of particular proteins can shape the morphology of a complex sensory organ. This work will have an impact in several areas of neuroscience, and the project also will provide multidisciplinary training for students.